The West Virginia K-12 Ruralnet

9550017 Smith This 42-month project develops a cadre of 40 math/science teacher-leaders in K-12, trained on the use of Internet, who serve as peer teacher trainers and members of an on-line mentoring community. They in turn train, support and mentor 1200 additional teachers from 400 schools in West Virginia. All participating schools are connected to the Internet and the requisite equipment provided through cost sharing. The strategies include 2-weeks of teacher leader training, an implementation year including Project Green and on-line learning, and a follow-up three-day conference to debrief and prepare the participants for peer teaching. The peer groups are taught by two teacher-leaders and one graduate student at various sites throughout the state. The project includes year-long mentorships via the Internet, establishing affinity groups, and developing a science education gopher. The science curriculum core for the project is drawn from Project Green, is closely aligned with other state efforts and the science frameworks, and is tied to the statewide concern about water resources. Graduate credit is awarded through West Virginia University and Marshall University and ranges from 4 to 7 graduate credits per participant. In addition to developing the expert base and a large community of users, the project investigates the effectiveness of the activity. Cost sharing is 218%. ***